Bellman functions and Wavelets

Proposal Number: DMS-0140193
PI: Janine Wittwer

ABSTRACT

The method of Bellman functions is a powerful method that
can be used to bound sums indexed by dyadic intervals.
Many discrete results in Harmonic Analysis have been
obtained with this method in the last few years. To date
it can be used on sums involving inner products of a
function with the scaling or wavelet functions from the
Haar wavelet system, but not the scaling or wavelet
functions of general wavelet systems. Many of the discrete
results obtained with the current Bellman function method
could be expanded to the continuous setting if the Bellman
function method was available for more general wavelets.
The PI proposes to expand the method of Bellman functions
from its current scope to sums involving any MRA wavelet.

Wavelets have been useful in many areas such as
mathematics, physics, engineering and signal processing.
They are the basis of the new world wide web image
compression standard JPEG2000. They prove to also be a
useful tool in harmonic analysis. It is frequently
necessary to estimate the size of sums involving wavelets.
The Bellman function method is a very useful tool in doing
so, but currently only works for a very special wavelet
called the Haar wavelet. The PI is interested in
generalizing the method where possible to more general
classes of wavelets.